Civil Engineering in the 21st Century

A conference serving as a workshop is being planned to set a specific agenda for implementing a pattern of research, change, innovation, and progress in civil engineering and construction that will last into the 21st century. The conference is dedicated to examining the field of civil engineering, the directions of future activity that should be explored, and the strategy for implementing the objectives developed. The emphasis is on research and education to better equip civil engineers to provide the leadership and innovation to meet the needs of society in the remainder of the 20th century and for the 21st century.